Coordination Chemistry of Novel Main Group Anions

This renewal award is made in the Inorganic, Bioinorganic and Organometallic Chemistry Program to Clemson University in support of the research of Dr. Joseph W. Kolis. The thrusts of the research will be: (1) the synthesis and characterization of transition metal chalcogenide carbonyls, (2) the synthesis and characterization of mixed main group anion clusters prepared from transition metal carbonyls and arsenic and phosphorous sulfides and selenides, and (3) the synthesis under kinetically-controlled conditions of solid-state materials based on the above chemistry. The use of molten salts and supercritical solvents will be employed to prepare solid-state clusters in a mid-temperature regime where decomposition to thermodynamically stable products does not occur. %%% An investigation into the coordination chemistry of novel main group anions will provide new transition metal chalcogenides, new mixed main group anion clusters and new solid-state materials. Possible applications are catalysis, lubrication, battery components and semiconductors.